Cutaneous Vibration and Its Role in Texture Perception

9514432 HOLLINS This research will investigate humans' sense of touch, and in particular, the ability of people to determine, by touch, what the surface of an object is like. People can often determine, by drawing a finger across a surface, whether it is cloth, styrofoam, leather etc.; it is not known, however, on what specific aspects of the stimulus event these perceptions are based. The hypothesis to be explored in this research is that small vibrations, set up in the skin when the finger moves across a textured surface, contain the information needed to make many of these judgments, and that sensory processing of the vibrations in fact contributes to texture perception. The research will test this notion in a number of ways. First, the vibrations themselves will be recorded and analyzed. The information they contain will be evaluated and compared with the performance of experimental participants. Second, higher-order features of the vibration, such as the way it waxes and wanes over time, will be manipulated to determine if perception reflects the encoding of such temporal patterns. Third, some textures will be presented repeatedly, to learn how adaptation influences the precision of texture judgments; the resulting perceptual changes will yield information about underlying sensory processes. Fourth, textures will be touched indirectly, with a small rod, thus eliminating all cues except vibration. If subjects' judgments are still accurate, the importance of vibration in texture perception will be established. Fifth, pre-recorded vibrations will be played back to the finger, to determine whether participants can recognize the original texture. These five sets of experiments will provide a thorough test of the hypothesis that vibrations contribute to tactile texture perception, an idea that has important implications for remote and prosthetic sensing, and for the possibility of sensory enhancement in persons with somesthetic impairments. In additi on, the research will contribute basic knowledge about an important aspect of tactile perception. ***